MRI: Acquisition of SQUID Magnetometer for Ferromagnetic Semiconductor and Oxide Research

We request funds to acquire a Quantum Design Superconducting Quantum Interference Device
(SQUID) magnetometer to measure the magnetic properties of Mn and Cr-doped Group III-
nitride films grown on both doped and undoped AlGaN/GaN heterostructures and single
crystalline Mn-based perovskites. Our laboratories are equipped with all the growth, fabrication,
testing for electrical and structural capabilities, but this critical piece of equipment is missing. The
equipment will be installed in the state of the art Virginia Microelectronic Center research
laboratories at VCU. Spurred by room temperature ferromagnetism in GaN:Mn and potential
applications combining spin and charge transport for devices under the umbrella of spintronics,
we will investigate the fundamental issues in nanoscale semiconducting ferromagnets, such as
thermal stability of magnetism, Curie temperature, magnetic viscosity, coercivity, and inter-dot
magnetic interactions in GaN quantum dots interfaced with GaMnN/GaCrN films, as well as
GaMnN or GaCrN dots interfaced with GaN films. Additionally, we will also investigate
magnetism in single crystalline oxides, which are produced in our laboratory using MBE systems
and a sputtering system. Specifically, the temperature dependence of magnetization in both field-
cooled and zero-field-cooled conditions, magnetization hysteresis and magnetic relaxation related
behavior will be measured. These are critical to understand the magnetic behavior of these
ferromagnetic semiconductors and magnetic perovskites.
Furthermore, magnetic anisotropy and easy axis reorientations related to hole density or epitaxial
growth lattice-matching strains will be investigated. The behavior of thin film systems containing
a few layers of diluted magnetic materials is complicated by the fact that the absolute magnitude
of the magnetic moment is very small, especially at higher temperatures. In order to measure
these effects with high precision and obtain the relevant information for fabricating high-quality
samples, we need a SQUID magnetometer equipped with sample space oven and sample rotator.
The intellectual merit of the proposal is to provide basic and technological understanding of
physics of behavior of magnetic spins on spin-based devices from the precise measurement of
magnetization properties on dilute magnetic semiconductors and magnetic oxides fabricated using
the state-of-the-art techniques. The broader impacts of this proposal are to provide necessary
information and feedback on the fabrication of spinotronic devices, search for new magnetic
materials for better spin-injection, and understanding of spin degrees of freedom in this new class
of ferromagnetic semiconductors.